Support for an Arctic System Science Planning Workshop

This project provides broad community support and expert help in planning for programs central to the Arctic System Science research initiative. These activities include: 1. Conduct of a major workshop to plan for interdisciplinary research in ocean/atmosphere interaction under Arctic System Science program area. 2. Publish the report of the workshop.